Improvement of a Model Towing Tank for an Undergraduate Naval Architecture Laboratory.

This project is to build a unique model towing tank facility by the addition of new transducers, data acquisition, recording and analysis equipment to an existing tank. The resulting equipment will allow students to run seakeeping and other experiments similar to those commonly done in industry.